Development of High-Precision Atomic Methods and New Physics Searches

This project will advance the frontiers of atomic physics by developing new high-precision computational methods, with broad significance for atomic physics, quantum science, astrophysics, plasma physics, and particle physics. Precise atomic structure calculations underpin cutting-edge applications in quantum technology and fundamental tests of physics. By pushing atomic theory to new levels of accuracy, especially for previously intractable heavy atoms, the proposed work will provide essential insights across these diverse fields. Lack of precise atomic predictions for complex atoms has become a bottleneck in both the interpretation of high-precision experiments and the design of new ones. Overcoming this critical problem in atomic physics will deliver transformative capabilities. It will deepen our fundamental understanding of complex atoms, strengthen the interpretive power of precision experiments, and continue to forge important links between AMO physics and other fields (quantum information, astronomy, plasma physics, and high-energy physics), thereby opening the door to new discoveries at the interface of atomic physics and fundamental physics. This project will yield broad benefits by strengthening the research infrastructure through a significant expansion of atomic-theory capabilities. The enhanced ability to compute properties for more complex atoms will support many applications—from improving models of astrophysical and plasma physics phenomena, to enabling the optimal design of quantum devices, thereby amplifying the impact of U.S. investment in fundamental research. Open dissemination of the project's results (both the data and the underlying open-source codes) will ensure quick access to high-precision atomic tools to the community.

A central challenge addressed by this proposal is the lack of accurate theoretical tools for calculating the spectra of complex open-shell, multivalent atoms—particularly those with open d- and f-shell electrons, including some of the most promising atoms for next-generation precision measurements. This project addresses the critical computational bottleneck preventing high-precision calculations of such systems. Current atomic structure algorithms based on the configuration interaction (CI) method rely on a pre-construction paradigm using integer-array data structures, which imposes a severe memory bottleneck that renders calculations for some heavy atoms with open d- and f-shells intractable. As high-performance computing shifts toward many-core and GPU-accelerated nodes with lower memory-per-core ratios, the legacy requirement to store massive sparse matrices creates a hard ceiling on system complexity. We propose a fundamental redesign of our pCI code package to implement on-the-fly selected-CI (SCI) algorithm based on bitstring representations used in modern quantum chemistry CI programs. The proposed changes will convert the code from a memory-limited legacy application into a scalable, compute-intensive tool optimized for exascale-class systems. This capability will allow us to produce massive, high-precision atomic data for open-shell systems that were previously intractable. PI estimates show that new algorithms will allow us to conduct drastically larger CI computations enabling us to treat much more accurately such systems as Yb, Yb+, other lanthanides and actinides, open-shell transition metals, and highly charged ions such as Fe, Ir, Os, and other highly charged ions with open d and f shells.